A Redshift Survey from Las Campanas

The distribution of galaxies remains both the primary motivation and the primary test of theories of the origin and growth of structure in the universe. The dynamical and positional informa- tion which is contained in the distribution of galaxies in red- shift space is still the only good handle we have on the underly- ing mass distribution. This research will extend our knowledge of the distribution of very distant galaxies to a very large degree, approximately doubling the number of redshifts available for the construction and testing of cosmological models. This program, to be carried out by members of the group which first discovered very large scale inhomogeneities in the uni- verse, builds on work supported under a previous NSF grant in the form of a multi-object fiber system which permits obtaining thirty or more good spectra of galaxies in only two hours. This will permit the measurement of some 20,000 redshifts, distributed over 800 square degrees of sky over the next two years.